a-,b-, and y-Tubuln Genes of Arabidopsis

The long-term goal of the proposed research is to understand the roles of microtubule-based components of the cytoskeleton in plant development. Morphogenesis in plants is controlled primarily by processes that establish the planes of cell divisions and the axes of cell elongations, and three microtubule arrays unique to plant cells play central roles in these morphogenetic processes. Furthermore, the absence of centrioles in plant cells makes the potential role of gamma-tubulin in the nucleation of microtubules of particular interest in plants. These investigations focus on the genetic control of microtubule-based processes in the model plant Arabidopsis thaliana, which contains 15 characterized alpha and beta-tubulin genes and at least one gamma-tubulin gene. The specific objectives of the proposed investigations are (1) to use immunofluorescence or immunogold microscopy and gamma-tubulin- specific antibodies to localize gamma tubulin within cells throughout the cell cycle, (2) to characterize spatial and temporal patterns of expression of the gamma tubulin gene(s) and selected beta-tubulin genes, and (3) to investigate the utilization and function of the pollen-localized alpha 1-isoform by means of immunolocalization with our alpha 1-tubulin-specific antibody and by analysis of transgenic plants harboring "antisense RNA" chimeric genes.